Pattern Formation in Thin-Film Ferromagnets and in Spinodal Decomposition of Polymer Solutions

The planned work investigates the predictive power of two
simple continuum models in condensed matter physics. Do the
models predict the formation of certain spatial pattern in an
order parameter, patterns which are experimentally observed
in special regimes? The two considered models are
a) the micromagnetic model and b) a model for quasi-stationary
flow of a mixture of two incompressible fluids of
different viscosity, a flow driven by slowly changing forces on each
component. In case of model a), the objective is to identify a
regime of the physical parameters in which the model reproduces
the characteristic domain and wall pattern
of the magnetization which is observed in a ferromagnet
with a thin film geometry. In case of model b), the objective
is to inquire if it explains the creation and self-similar
coarsening of sponge-like pattern, which are formed by
the concentration of the polymer phase during spinodal decomposition
of a mixture of polymer and water. Mathematically speaking,
model a) comes in the form of a non-convex, non-local minimization problem
in the magnetization. Model b) comes in the form of a partial
differential equation of gradient flux type, which evolves the
polymer concentration in time. For model a), the mathematical goal is to
characterize variational limits of minimizers in the targeted
parameter limit. Rigorous proofs will be given.
Model b) actually is a modification of the model proposed by
the experimentalists. The goal is to show that the modification
is necessary to reproduce their observations at least qualitatively.
A combination of asymptotic analysis and numerical simulation will
be employed.

Modeling certain phenomena is the key to control them - and to make
use of them. A good model is both simple and of high predictive power.
Models in sciences and engineering usually are cast in mathematical language,
and making prediction with the model then amounts to solving a mathematical problem.
The goal of this work is to use modern mathematics for two specific
models in order to assess the quality of a model's predictions and
to improve the models. The first model describes
the behavior of magnetic thin films such as coatings in magnetic recording media.
The goal is a better understanding of the size and shape of micromagnetization
patterns. This is a major factor in the storage capacity of such media.
The second model describes the behavior of polymer-water mixtures over time.
Such mixtures are used in polymer processing and are ubiquitous in
biochemistry. The goal is to understand the patterns that often
form during the polymer concentration process. The new tool at our disposal
is a powerful computer, which allows to solve the mathematical problem
behind the model numerically. Implementing a mathematical problem on the
computer is delicate and requires a good theoretical understanding of the
problem. Modern tools in mathematical analysis have become indispensible
for this task and will be used in conjunction with numerical calculations
for the planned work.